A Data Storage and Retrieval System for Earthquake Engineering

Novel approaches are needed to facilitate the dissemination and utilization of the increased information produced in the earthquake hazard mitigation field. This project will design, develop, and produce a prototype data storage and retrieval system which will accommodate pages of text, line drawings, and continuous tone images. The system will accept search requests in the form of a sequence of keywords which can be associated with one another using logical connectives such as "and", "or", "but not", etc., and will produce in response to each request, a list of the accession numbers, or possibly page and word numbers, of those documents satisfying the request. The reading system will then present to the user on a high resolution display, an image of the required documents, a page at a time, for review. Those pages which appear to be of interest can then be printed on a suitable printer. This program will use current technology, or minor extensions thereof, to create a system which will meet all of the above requirements, have a low system cost, and allow a large amount of information to be disseminated very inexpensively.